CT-M: Collaborative Research: Securing Dynamic Online Social Networks

Considering the popularity and wide adoption of social network systems and the competitive edge these systems provide, there has been a rapid growth in use of these systems to access, store, and exchange personal attribute information in distributed and/or federated environments and this trend is expected to continue. Efficient, secure, and user-centric techniques are important for the successful deployment of such systems. Our goal in this project is to develop a comprehensive and compelling framework SNGuard (Social Network Guard) that satisfies diverse privacy properties, access control issues, identity management requirements, and usage patterns. The vision of dynamic social networks is a complex and highly sophisticated one that requiring ongoing research and analysis to continue concurrent with the changing role and face of digital information creation and usage including personal information and contents in social networks. The principal intellectual products resulting from this project will be the development of novel frameworks to facilitate user-centered privacy management, content management and risk-aware access control, thereby making SNGuard solutions more trustworthy, more reliable, and less vulnerable. This research effort will have broad societal impact by providing a key mechanism to enable new business and community models for the sharing of personal attributes including identity information to safely, easily, and quickly establish social networking environments in cyberspace. In addition to these potential benefits, other anticipated, broad-based benefits to be facilitated by this research include significant influence to K-12 education, international collaboration, and industrial and government partners.